X-Ray Facility Improvement

Single crystal X-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organometallic chemistry, single crystal X-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the intermolecular composition and structure helps to develop new reactions of potentially general interest in catalysis or organic synthesis. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at the University of California in Berkeley, upgrade the existing X-ray facility. Among the areas of chemical research that will be enhanced by the acquisition are following: o X-Ray Crystallography in Organic Synthesis o Structure-Based Design and Evaluation of Protein Ligands o X-Ray Diffraction as Tool in Studies of the Reactions of Organometallic Complexes o Studies of Transition Metal Oxides and Phosphides o Accurate Structure Analysis as a Probe of Bonding interactions in Organometallic Compounds o Bioinorganic Chemistry